PFF: Cell Adhesion and Cell Locomotion

9350370 Zhu This Presidential Faculty Fellow Award will allow the PI to develop a research program in cellular engineering focusing on cell adhesion and cell locomotion. In addition, the award will enable the PI to enhance his teaching by applying case-based learning to his courses, developing a curriculum in cellular transport and tissue engineering and participating in undergraduate teaching. ***